NGS: Middleware for Internet Workflow Management

EIA-0101578
Dan C. Marinescu
Purdue University

CISE NGS: Middleware for Internet Workflow Management

Middleware is a software layer that allows applications to use the resources provided by a grid. The middleware is expected to perform functions provided by the operating system of a computer, e.g. resources management and process management. In case of a tightly coupled system, resource and process management is under the control of a scheduler, which manages and controls the allocation of all system resources to process competing for them. The scheduler has accurate information about the System State. The situation is quite different on a grid where resources are managed by autonomous entities and the scale of the system prevents any single entity from knowing accurately the state of the entire system. This proposal is concerned with middleware for process or workflow management.